Research Initiation Award: Coupled Magneto-Thermo-MechanicalBehavior of Superconducting Composites

The Research Initiation Award is to support an integrated study of magneto-thermo-mechanical behavior of superconducting composite solids. An efficient and consistent finite element computational method for solving the resulting nonlinear field equations will be developed.